Structure and Evolution of Galaxies

9318617 Sellwood Current understanding of the structure, origin and evolution of galaxies has advanced enormously in the last decade, due in part to advances in astronomical detector technology, and in part to advances in computer power and theoretical insight. The grant will address a number of closely related fundamental questions in galactic dynamics, including: the origin and evolution of disk and spheroidal galaxies, with particular focus on the role of dynamical instabilities; the structure of triaxial elliptical galaxies, especially those with large centric densities; and the dark matter content of a wide class of stellar systems, including elliptical and barred galaxies. Included in the research are: analysis of large-scale N-body simulations; analytical and semi-analytical studies; and analysis of observational data. ***